SHF: Medium: Type-Specific Instruction Processing

This research project develops hardware software interfaces to enable standard
software programs to benefit from specialized hardware accelerators.
Standard CPUs are general purpose meaning that they are designed to execute
all types of applications -- from graphics processing in video games to
spreadsheets. Because of the diversity of workloads they are expected to
execute, general purpose processors can never be overly specialized for any
individual one. By contrast, processors which are tailored to a single
workload or workload domain are narrower in their applicability but more
efficient at executing applications in their target domains.

This research project examines specialized processors that target abstract
datatypes: moderate to large scale data structures and their associated
operations. Modern software engineering practice encourages the use of such
abstract types to improve programmer efficiency and software reliability.
Abstract datatype processors thus align with these practices making the
mapping of software to hardware intuitive and streamlined. By delivering
energy-efficient, application-specific hardware in an easy-to-program fashion,
this research empowers programmers to write faster software that consumes less
energy.

The research activities span three fields of computer science: Hardware system
and architecture research is carried out in software simulation. This portion
of the research explores multiple aspects of the hardware system including
efficient implementations of software-style polymorphism and mechanisms to
enforce data encapsulation. The project is grounded in a specific,
performance-critical, real-world problem of database query processing. This
component of the research identifies target types for hardware acceleration
that are used in common, complex database operations such as range
partitioning. Performance results will be obtained both by direct measurement
and by simulation. Finally, the compiler segment of the project develops
compiler techniques to link high-level languages to the accelerators available
on the target hardware system. The compiler adapts software at runtime to
best utilize the available accelerators and to partition code among
general-purpose and specialized processing cores.

As power and energy become the most critical resource in computing systems,
mechanisms to conserve these resources have come under significant scientific
scrutiny. The broader impact of this research project is to harness software
abstractions in specialized, energy efficient hardware. By prioritizing
programmability and efficiency equally, this research strives for usable,
energy-efficient, next-generation computing platforms. As a first area of
application, this project targets databases, the software engines that store
and index and compute on society's information.